Three-body Breakup by an External Perturbation

A new computational approach to three-body breakup in an external field is developed and used to examine the H- and He atoms. The approach avoids explicit considerations of the (unknown) boundary conditions on the wavefunction for three particles in the coulomb continuum.